CPA-CPL: Compiler and Software Solutions for the Memory Bottleneck on Multicore

Virtually every high-performance processor today has multiple processing
units (also known as cores) on a single chip. Such multicore hardware
designs present opportunities for significant performance gains, by
processing multiple tasks simultaneously, thus enabling novel
compute-intensive applications. Executing multiple tasks on a single chip
requires data to be transported in and out of the chip at a rate which
often exceeds current hardware capability. Consequently, realizing the
performance potential of current multicore processors requires novel
solutions to the memory bottleneck problem. This project investigates
software solutions to alleviate the memory bottleneck. The main idea is to
use program transformation tools (also called compilers) to restructure
programs so that they can best utilize deep and complex memory
hierarchies, and to account for such hardware optimizations as prefetching
and shared caches.

This project investigates novel programming models and constructs for
scalable multicore processors, and compiler techniques to support such
models and constructs. It also aims to develop a runtime infrastructure
for message passing aggregates to support such models and constructs on
clusters of multicore processors. Software developments are augmented by
analytical models that guide application development and compiler
optimizations. Software techniques and theoretical models are validated
for performance and scalability on platforms ranging from multicore
desktop machines to clusters of multicore processors.